WOBCATS: Washington, Oregon, British Columbia, Alberta Theory Seminar: August 1990, November l990.

This project supports WOBCATS: Washington, Oregon, British Columbia, Alberta Theory Seminar which meets three times a year in the Northwest United States and Southwest Canada. Each meeting features three speakers with ample time for technical interchanges and discussions. Attendees include people from as many as 14 universities in the region. This seminar will help disseminate most recent research findings by researchers in that region.